Presidential Young Investigators Award: A Theory-Based Controlling UEP Method for Power System Transient Stability Analysis

The goal of this project is to (1) develop theoretical foundations and analytical tools for the analysis and control of a class of nonlinear dynamical systems such as power systems, and (2) achieve valuable and practical results for power systems by making use of the structure inherent in the systems and these developed tools. The characterization of power system stability by examining the controlling unstable equilibrium point is a first step goal, to be achieved by fully developing the theoretical considerations.